Equipment for Neurobiological Experiments and Computerized Data Acquisition/Analysis in an Undergraduate Physiology Program.

During the past 10 years, Neuroscience has coalesced from Pharmacology, Physiology and Biopsychology into a coherent discipline which occupies a prominent position in Biology. This project integrates neurobiological experiments into current physiology courses through the purchase of extracellular recording devices which can be used to add two modern, sophisticated neurobiology experiments to the Mammalian Physiology laboratory and to initiate the laboratory portion of a new Neurobiology course. Computer-interfaced data acquisition and analysis apparatus is being used with the above units and in 11 of 13 existing experiments in Mammalian Physiology, as well as in various experiments in Neurobiology, Cell Physiology and Comparative Physiology. The addition of these two experimental setups and the experiments they make possible enable students to become familiar with some of the modern, sophisticated neurobiological and computer-oriented techniques used in research and industrial laboratories where graduates may pursue advanced studies or career employment.